Travel: NSF Student Travel Grant for 2025 ACM International Symposium on Mobile Ad Hoc Networking and Computing (ACM MobiHoc)

This grant seeks to fund US-based students to attend ACM International Symposium on Mobile Ad Hoc Networking and Computing (ACM MobiHoc) 2025, held in Houston, Texas on October 27 - 30, 2025. ACM MobiHoc 2025 is a premier annual forum that attracts high-quality, forward-looking research contributions and provides a vibrant forum for technical and professional exchanges. ACM MobiHoc 2025 will expose selected students to cutting-edge developments in the field and enable interactions with world-leading researchers. Students will gain feedback on their ongoing work, broaden their academic perspectives, and build lasting professional connections.

This project supports students from US universities to attend ACM MobiHoc 2025 conference in person. Students will have the opportunity to present their work and be exposed to state-of-the-art developments in the field. They will also have the opportunity to interact with peers from institutions worldwide, meet with senior researchers, and participate in discussions that are likely to shape the future of the field. This grant will target students who will substantially benefit from attending this conference but have limited travel funds. Priority will be given to first-time attendees.